Learning Teaching And Instructional Design in Reform Classrooms

9604982 Cobb This one-year planning project will focus on the teaching of statistics at the middle-school level (grades seven and eight). The investigators will develop and assess an instructional sequence that uses a customized mini-tool programmed in Java. This sequence will emphasize students' exploratory data analysis within the context of large-scale real world applications in statistics. The tool and instructional sequence will be designed, then field-tested via a twelve-week teaching experiment in a seventh grade classroom.